NSF Young Investigator

Technical abstract: The focus of the research is to study the effects of quantum phenomena such as energy level quantization and single- electron charging on electronic transport in nanostructures. It is proposed to utilize an atomic force microscope (AFM) with a conducting tip to serve as a local electrostatic gate. A voltage applied to this tip will influence transport with a submicron resolution. Some of the systems to be studied with such a technique are chemically synthesized arrays of metal and semiconductor clusters with diameters less than 10 nanometers. These studies will be carried out at cryogenic temperatures. Other applications include local magnetic resonance measurements including magnetic resonance imaging on a submicron scale. Non-technical abstract: The focus of the research is to study effects of a single electron on the properties of extremely small, atomic sized, devices. It is proposed to utilize an atomic force microscope (AFM) with a conducting tip to serve as a local electrostatic gate. A voltage applied to this tip will influence transport with a microscopic resolution. Some of the systems to be studied with such a technique are chemically synthesized arrays of metal and semiconductor clusters with diameters of tens of atoms. Other applications include local magnetic resonance measurements on scale of perhaps a thousand atoms.